Time and Temperature Stability of Magnetization - A Study onMagnetite and Titanomagnetite Prepared by the Glass-Ceramic Method

At the Asilomar Workshop on Rock Magnetism (September 16-19, 1986) it was unanimously agreed that the next generation of paleomagnetic problems which impact on geomagnetic field generation and reversal, tectonics of continental margins and Precambrian continental drift requrie a major increase in our knowledge of the effects of time and temperature on the magnetization of pure m agnetite and titanomagnetite. The PIs have d a materials synthesis technique, the glass-ceramic method, which produces uniform grains ranging in size from 50 nm to 100 um in a state of low internal stress as seen from their magnetic hysteresis and thermoremance properties. They study the effects of applied field, temperature and internal stress on the acquisition and stability of thermo-viscous magnetization. The results will be specially relevant to test whether domain wall/stress interaction through "disaccommodation" or "aftereffect" phenomenon is important for terrestrial samples and may lead to methods for removing undesirable but relatively stable viscous magnetization. These studies will be complementary to those now being carried out by Halgedahl and Moskowitz on the role of domain wall generation and movement in viscous magnetization.